Time Resolved Studies of Molecular Clusters Using Mass Analyzed Threshold Ionization Spectroscopy

Joseph L. Knee is supported by the Experimental Physical Chemistry Program to study the spectroscopy and dynamics of molecular clusters using pump-probe threshold photoelectron spectroscopy. Threshold photoelectron spectroscopy is used as a state selective probe of excited state dynamics by monitoring the time evolution of the photoelectron spectrum as a function of pump-probe laser delay. By implementing mass analyzed threshold ionization spectroscopy (MATI), such studies can be done with mass resolution; a reflectron mass spectrometer will be built for this purpose. Fluorene-Ar(subn) clusters will be used to study intramolecular vibrational redistribution (IVR) and vibrational predissociation (VP) in van der waals complexes. The cluster size, n, will be varied in order to investigate cluster size influence on IVR and VP dynamics. MATI experiments will be carried out which will distinguish between different cluster conformations, allowing dynamic measurements of processes such as conformer interconversions. Cation cluster spectroscopy will be another important component to these studies. Also, proton transfer in Naphthol-(NHsub3)subn and other hydrogen-bonded systems will be studied. Many studies have been completed on binary and tertiary complexes, but for clusters of four or more, the quantity and quality of information available is much less. Larger clusters are important to study if one is interested in learning about solution phase behavior such as how solvents can participate in and mediate chemical reactions, e.g., the excited state proton transfer between 1-Naththol and ammonia requires at least four ammonia molecules complexed to the naphthol to occur. To learn about cluster structure and dynamics in larger clusters, one has to overcome problems of complexity and mass selectivity.